Future of Synthetic Materials for Construction

This project will investigate the feasibility and possibilities for future use of synthetic materials in construction. The investigators will study: material properties, safety considerations, costs, and acceptance by the architects, engineers, public bodies, and contractors.//